Second International Symposium on Thermodynamics in Chemical Engineering and Industry, Beijing, China, May 24-27, 1994

9403799 Sandler The "Second International Symposium on Thermodynamics in Chemical Engineering and Industry" will be held in Beijing,China from May 24-27, 1994. It will be the first major conference to be held in China soley on thermodynamics, phase equilibrium, and separations processes in six years. An important feature of the 1994 Symposium is that it will be truly international in nature. Indeed, in addition to the twelve U.S. university researchers who are supported by this grant, there wil be participation by researchers from France, Canada, the Netherlands, Russia, Australia, Japan, Germany, South Korea, Taiwan, Italy, Norway, Denmark, Hong Kong, and Portugal. ***